U.S.-Italy Cooperative Research: High-Performance Parallel Computing for Computer Vision

9300146 Dyer This award will support collaborative research between Charles R. Dyer, University of Wisconsin, and Marco Ferretti, University of Pavia, Italy. The research will attempt to exploit parallel programming models to overcome existing problems in shape and motion analysis. It will include research on designing and implementing parallel computer vision algorithms for high-performance parallel computers. Data-parallel methods will be developed for the intermediate-level vision tasks of two- dimensional and three-dimensional shape analysis, and motion analysis. Each researcher brings complementary strengths to this cooperative effort. Dyer has developed a number of new techniques in the areas of three- dimensional object representation, object recognition, motion analysis, and methods for active visual three-dimensional shape recovery and exploration using continuous, directed observer motion. Ferretti has studied extensively the implementation of parallel algorithms on a wide range of custom and general-purpose parallel computers. The researchers will collaborate on defined problems of mutual interest that will enhance both groups' abilities to develop new techniques and implement parallel programs to test these methods. ***